Research Experiences for Chemistry Undergraduates at UCLA

The University of California at Los Angeles is being supported to establish a Research Experiences for Undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under the supervision of experienced research chemists. The program will support about 7 students for the summer of 1987. An effort will be made to attract students from institutions which have limited research opportunities for undergraduates. Research activities will include the following: o Synthesis of Antitumor Antibiotics o The Chemistry of Organics in Sediments o Chemical Dynamics via Molecular Beams and Lasers o Bio-Organic Chemistry